Mathematical Sciences: Applications of Adaptive Finite Element Methods to Problems in Estimation and Control for Partial Differential Equations

This project has two components. The first is to develop adaptive mesh algorithms for shape-parameter identification in partial differential equations. Such algorithms are useful in seismic, biomedical and other non-invasive imaging problems. The other topic involves the concept of domain control. This work applies to such problems as the control of flexible airfoils in order to achieve a desired response.